Chlorine and Its Stable Isotope Budgets in Subduction Zones: Implications for Serpentinization and Cycling of Cl and Water

Kastner

Abstract

The PI will measure of Cl concentrations and isotope systematics in subduction-related aqueous fluids and rocks. The main objectives are to determine Cl concentrations and isotope compositions in: 1) pore fluids and sediments from the Costa Rica subduction zone; and 2) serpentine samples from subduction zones and transform faults. The work would result in an improved understanding of the cycling of volatiles (Cl, H2O) during tectonic processes and is of broad scientific interest.